Mechanical Efficiency of Kinematic Heat Engines

An analytical investigation of the inherent limitations to the extraction of useful work from reciprocating engines is conducted. It is part of an extensive work on the mechanical efficiency of heat engines. The overall objective of the research is to improve heat engine design and development capabilities on a practical level.